Mathematical Sciences: Block Travel Grant for Conference on the State of Matter

During the past two decades there has been considerable progress in the understanding of the nature of matter through the rigorous mathematical analysis of models which describe different states of matter. The more notable developments include (1) a thorough analysis of Thomas-Fermi and related semi-classical models for atomic and molecular systems, (2) analysis of the stability of matter, (3) verification of the correct asymptotes of the ground state of energy of atoms up to certain orders, (4) proof of the finiteness of the maximum excess charge of atomic and molecular systems, estimates on the maximum excess charge, and proofs of asymptotic neutrality, (5) proofs of the existence of the thermodynamic limit for Coulomb systems, (6) analysis of models in quantum and statistical mechanics, (7) analysis of such quantum phenomena as the quantum Hall effect and the formation of Cooper pairs, and (8) proof of the existence of the hydrodynamic limit of Boltzmann's equation for interacting particle systems. This project will support a block travel grant to the Conference on the State of Matter to be held in Copenhagen, Denmark from July 30 to August 1, 1992. The conference will provide an opportunity for newer mathematicians and scientists to learn about developments at the leading edge of this branch of mathematical physics.